NGS: International Summer School on Grid Computing

To support the hands-on laboratory sessions, a testbed will be established that will host
widely used middleware produced by projects in the US, the EU, and in Asia Pacific
(AP). The testbed will be connected to major international science grids and thus
provide a rich environment for hands-on learning and experimentation. The laboratory
will be populated with one PC for every two students.

The target audience consists of young researchers and practitioners (from technical
industries, research laboratories, and academic environments) who have recently
started (or are about to start) working on grid computing projects.

The school will have a broad impact because it will prepare a substantial number of
researchers to engage in grid projects, both building and deploying grid infrastructure
and using it for applications. The students who have applied for admission are engaged
in grid projects for a wide variety of application areas, including astronomy, biology,
chemistry, earth science, medicine, and physics. There are also students who are
involved in projects that are conducting research on grid middleware and on network
technologies for grids. As a result, this school will seed many projects with people who
have gained a good understanding of grid technologies.